Symposium on Quantum Nonintegrability; Philadelphia, Pennsylvania; May 20-22, 1992

This award in mathematical physics supports the Symposium on Quantum Nonintegrability; at Drexel University on May 20- 22, 1992. This meeting will address the current research efforts which are directed at understanding the issue of "quantum chaos".